CT-ISG: Advanced Techniques to Detect Kernel-Level Rootkits

The integrity of commodity operating system kernels is threatened by rootkits
that modify key kernel data structures to achieve a variety of malicious goals.
While rootkits have historically been known to affect control data in the
kernel, recent work demonstrates rootkits that affect system security by
modifying non-control data, such as linked lists used to manage bookkeeping
information and metadata used for memory management. Existing techniques fail
to detect such rootkits effectively.

This project is developing techniques to provide real-time protection against
rootkits by detecting anomalies in both control and non-control kernel data
behavior using automatically-generated integrity specifications. This goal is
being achieved in two steps. First, a technique to mine specifications of
kernel data structure integrity is being developed. These specifications are be
mined automatically as data structure invariants. Second, these techniques are
being extended using operating system support to provide real-time detection.

Impacts and Results: The techniques developed in this project will defend
against the next generation of rootkits, and will enable real-time detection of
such rootkits. In addition, techniques to infer kernel invariants
may also find applications in operating system reliability, fault tolerance and
software engineering. The PIs will disseminate the results by releasing the
tools developed. The results of this project will equip the workforce with an
inter-disciplinary toolkit, that combines operating systems, computer security,
and software engineering, to address the challenges posed by the next
generation of stealth malware.